Mathematical Sciences: Studies in Continuum Mechanics and Materials Science

9301158 Gurtin This research concerns the further development of the general theory and the analysis of specific models of nonequilibrium thermomechanics of multiphase continua. The following studies are planned: i) the development of a dynamical theory of incoherent phase transitions, with emphasis on surface stress; ii) the development of general theory of highly nonequilibrium phase transitions driven by mass transport, with emphasis on the construction of models for solute tapping; iii) the analysis of models that generalize motion by curvature; these models include crystal anisotropy and yield a dynamical theory of crystal growth; iv) the analysis of general Stephan problems that allow for superheating and supercooling, with emphasis on nucleations. ***